Ultracentrifugation as a Part of an Expanded Biochemistry Program

9452119 Cannon Mississippi College is upgrading and expanding the program in biochemistry. This will include the addition of an ACS chemistry major with a Biochemistry option. In order to accomplish this, a second semester of biochemistry was added; molecular biology, medicinal chemistry or research will be available as the advanced course. Biochemistry I Laboratory is being completely reorganized to include more instrumentation and more modern techniques. The addition of a preparative ultracentrifuge and an ultrasonic processor will make possible a variety of experiments to Biochemistry, Molecular Biology, Microbiology, and Immunology laboratories. Experiments have been designed that involve both differential and gradient centrifugation. Undergraduate research will be greatly enhanced due to the availability of a wide range of projects made possible by this new facility. Such experience will lay a better foundation for graduate school.